Conference on Basic Research in Psychological Science, Chantilly, VA, April 25-27, 1997

The scientific psychology community began developing a Human Capital Initiative (HCI) in 1992. At about the same time, the National Science Foundation developed its own Human Capital Initiative (NSF 95-8). The NSF HCI was broader in scope, and included all of the social and behavioral sciences represented within the Division for Social, Behavioral, and Economic Research (SBER). The American Psychological Society has proposed to convene a workshop to coordinate the scientific agenda of the Psychology HCI with the research priorities of the NSF HCI. The goal is to identify current areas of psychological science where further development is most likely to enhance understanding of the issues identified in the NSF HCI. The workshop will produce a document focusing on the relevance of basic research in psychology for the NSF Human Capital Initiative.